NRI: FND: Semi-Supervised Deep Learning for Domain Adaptation in Robotic Language Acquisition

This project will enable robots to learn to perform tasks with human teammates from language and other human modalities, and then transfer the learned knowledge across heterogeneous platforms and tasks. This will ultimately allow human-robot teaming in domains where people use varied language and instructions to complete complex tasks. As robots become more capable and ubiquitous, they are increasingly moving into complex, human-centric environments such as workplaces and homes. Being able to deploy useful robots in settings where human specialists are stretched thin, such as assistive technology, elder care, and education, has the potential to have far-reaching impacts on human quality of life. Achieving this will require the development of robots that learn, from natural interaction, about an end user's goals and environment. This work is intended to make robots more accessible and usable for non-specialists. In order to verify success and involve the broader community, tasks will be drawn from and tested in conjunction with community Makerspaces, which are strongly linked with both education and community involvement. The award includes an education and outreach plan designed to increase participation by and retention of women and underrepresented minorities (URM) in robotics and computing, engaging with UMBC's large URM population and world-class programs in this space.

This award addresses how collaborative learning and successful performance during human-robot interactions can be accomplished by learning from and acting on grounded language. To accomplish this, this project will revolve around learning structured representations of abstract knowledge with goal-directed task completion, grounded in a physical context. There are three high-level research thrusts. In the first, new perceptual models to learn an alignment among a robot's multiple, heterogeneous sensor and data streams will be developed. In the second, synchronous grounded language models will be developed to better capture both general linguistic and implicit contextual expectations that are needed for completing tasks. In the third, a deep reinforcement learning framework will be developed that can leverage the advances achieved by the first two thrusts, allowing the development of techniques for learning conceptual knowledge. Taken together, these advances will allow an agent to achieve domain adaptation, improve its behaviors in new environments, and transfer conceptual knowledge among robotic agents.